MGE: New Models for SEM Recruiting and Retention

HRD-9817542

The University of Michigan seeks support from the National Science Foundation
for a major effort to re-engineer the processes for recruiting and mentoring
doctoral students in the physical and life sciences, engineering, and
mathematics. We seek NSF funding for four specific activities that will make a
critical difference in the creation and establishment of new models. The first two
are directed to the cultivation stage. The third is a pilot project for a fellowship
program that bridges recruiting to graduate mentoring. Finally, we ask
assistance in supporting an innovative scheme to provide faculty leadership for

The four activities are

1. An applications-oriented Summer Mathematics Workshop to facilitate
inquiry-based learning.

2. Expanded opportunities for students at other universities to have a
meaningful summer research experience at the University of
Michigan.

3. A Fellowships to Faculty pilot to encourage individual faculty
initiative in recruiting minority students.

4. A Faculty Leadership Committee, reporting to the Provost and the
Principal Investigator and Co-Principal Investigators, that will review
activities and progress within SEM departments, approve pilot projects
for improving recruitment and retention of minority students, and assist
and advise SEM departments and the Graduate School on the